Assessment of Bonding Conditions Between RC Structures and Advanced Composite Jackets

***
9812856
Feng
The enhanced structural performance of buildings and bridges strengthened,
retrofitted and rehabilitated with advanced composite (carbon or glass
fiber-based) materials has been well demonstrated and the number of such
structures is rapidly increasing. However, poor bonding quality,
particularly voids, in the adhesive interfaces between the reinforced
concrete (RC) structure and the composite material can significantly
degrade the structural integrity that could otherwise be obtainable by the
composite material. In order to solve this problem, this research will
develop an electromagnetic (EM) imaging technology for assessing the
bonding condition in the interface between concrete and a composite
material. Once the voids are detected, they can be corrected by injecting
adhesive epoxy at the time when the composite material is applied on the
structure.

The investigators of this research have completed a preliminary study
including development of EM image reconstruction algorithms and simulation,
which not only demonstrated the strong potential of the proposed technology
in detecting voids in the bonding interface, but also established a basis
for overcoming the major technical difficulties associated with the spatial
resolution and speed of assessment in this three-year study. The major
research tasks include: 1) development of a prototype EM imaging device,
2) further development of the EM imaging reconstruction algorithms, 3)
verification of the developed EM imaging technology by laboratory testing
on the bridge columns wrapped with composite jackets with well bonded and
poorly bonded interfaces, and 4) field tests for the effectiveness of the
developed EM imaging technology on bridges and buildings strengthened and
retrofitted with advanced composite materials.
****

***
9812856
Feng
The enhanced structural performance of buildings and bridges strengthened,
retrofitted and rehabilitated with advanced composite (carbon or glass
fiber-based) materials has been well demonstrated and the number of such
structures is rapidly increasing. However, poor bonding quality,
particularly voids, in the adhesive interfaces between the reinforced
concrete (RC) structure and the composite material can significantly
degrade the structural integrity that could otherwise be obtainable by the
composite material. In order to solve this problem, this research will
develop an electromagnetic (EM) imaging technology for assessing the
bonding condition in the interface between concrete and a composite
material. Once the voids are detected, they can be corrected by injecting
adhesive epoxy at the time when the composite material is applied on the
structure.

The investigators of this research have completed a preliminary study
including development of EM image reconstruction algorithms and simulation,
which not only demonstrated the strong potential of the proposed technology
in detecting voids in the bonding interface, but also established a basis
for overcoming the major technical difficulties associated with the spatial
resolution and speed of assessment in this three-year study. The major
research tasks include: 1) development of a prototype EM imaging device,
2) further development of the EM imaging reconstruction algorithms, 3)
verification of the developed EM imaging technology by laboratory testing
on the bridge columns wrapped with composite jackets with well bonded and
poorly bonded interfaces, and 4) field tests for the effectiveness of the
developed EM imaging technology on bridges and buildings strengthened and
retrofitted with advanced composite materials.
****